Postdoctoral Fellowship: MSPRF: Algebraic Groups in Positive and Mixed Characteristic

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Sean Cotner is “Algebraic Groups in Positive and Mixed Characteristic”. The host institution for the fellowship is the University of Michigan - Ann Arbor and the sponsoring scientist is Stephen Debacker.